Travel Support for US Scientists Attending Three International (European) Conferences on Cloud Physics

This travel support grant will enable US scientists (20 participants in all) to attend three conferences, namely: (1) the 1996 International Cloud Physics Conference in Zurich, Switzerland, (2) the Fourth International Cloud Modeling Workshop in Clermont-Ferrand, France, and (3) the 14th International Conference on Nucleation and Atmospheric Aerosols in Helsinki, Finland. Papers presented at these conferences are generally bound and available as formal proceedings.